Ice-Rafting History of the Central Arctic Ocean During the Last 600 KA

Despite numerous studies of the biogenic component in Arctic deep- sea sediments, several conflicting hypotheses exist concerning the history of glaciations on the surrounding land-masses and ice- rafting events in the central Arctic Ocean. This award supports the analysis of lithic and heavy mineral particles and the reflected light petrography and microprobe composition of Fe-Ti oxide grains to determine the history of ice-rafting events in sediment cores from the central Arctic Ocean and determine the sources for these sediments. This approach has the real potential to differentiate ice-rafting events in the Arctic Ocean and link ice-rafted detritus to potential sources from the surrounding landmass and thus provide a definitive glacial history for the North American Arctic as well as a clearer paleoceanographic history of the central Arctic Ocean. This ice-rafting history and provenance of the Arctic Ocean is critical to our full understanding of Pleistocene paleoclimate and paleoceanography.